Experimental Program to Stimulate Competitive Research in South Dakota

The State of South Dakota is seeking assistance for its plan to: (1) improve the quality of basic research being conducted in the State of South Dakota; (2) increase the number of Nationally competitive scientists and engineers; and (3) effect the long-term improvement in the research environment in the State of South Dakota. To achieve these goals, the State EPSCoR Steering Committee has selected three primary research thrusts: (1) Biomolecular Enhancement; (2) Materials Engineering and Science; and (3) Membranes and Interfaces. The participants in the three component proposals who are primary targets for research development were selected through a comprehensive external evaluation of full research proposals. An aggressive statewide Management Plan (as amended) under the name of REACH has been developed to monitor and stimulate the activities of each center and to ensure that resources are directed toward the program objectives during and beyond the funding period in order to leave a legacy of EPSCoR in South Dakota. The South Dakota EPSCoR effort has the enthusiastic support of the university administrations, political groups and private citizens. The extent of this support can be demonstrated by the unprecedented matching of $1.8 million (1:1) by the Governor of the State.